RIA: Effect of Ion Implantation on the Oxidation Stability of Single Crystal Silicon Carbide

The high temperature oxidation stability of silicon carbide ceramics which have been implanted with oxide-forming ions, such as aluminum and chromium, will be studied in this Research Initiation Award. Implantation will be performed at elevated temperature and the microstructural and compositional changes will be monitored. The interfacial reactions and the mass transport during subsequent oxidation exposures will be determined from these changes and also modeled from thermodynamic considerations.